Instrumentation to Measure the Emission and Transport of Biological Aerosols into the Atmosphere: Linking Across Scales from Microns to Kilometers

0119903
Parlange
The objective of the proposed research is to focus on the measurement of the emission and transport of biological aerosols (focusing on pollens) in the atmosphere. Several instruments that cover the size range of microns for the particles themselves to particulate dispersal over many kilometers will be developed. The behavior of individual pollen particles and the emission of pollen from the plant will be observed and modeled. At the larger scales, particulate dispersal will be studied in a wind tunnel and in field studies, and the experimental results will be used to refine large eddy simulation models. The field studies will be carried out at four sites in the Chesapeake Bay region. Pollen transport is of interest because of species cross-fertilization and genetic diversity concerns that have arisen due to human disruption of the natural landscape, as well as concerns about transport distances of genetically altered pollens.